Marine Geological Sample Collections: Scripps Institution of Oceanography

The core and dredge collections of Scripps Institution of Oceanography will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.